Implementation of an Active Learning Pedagogy into the General Physics Curriculum at Towson University

Physics (13) The Physics Department at Towson University is restructuring the calculus
based general physics courses in order to a) provide a more effective learning
environment for the students, b) provide appropriate course content in the service
courses, c) increase the retention of declared physics majors in the general physics
courses, and d) teach the general physics courses in such a manner so as to recruit
additional students. This is accomplished by offering two sequences of calculus
based general physics; one acts as a service course to other science disciplines, and
the other is an Honors Physics course. The Honors Physics sequence not only
has students from the Honors College enrolled, but all declared physics majors take
the course. Placing the physics majors in a class
with highly motivated, interested students such as from the honors college helps to
increase the retention rate of the majors. Additionally, this low enrollment course is
taught using adaptation of Workshop Physics techniques. This highly interactive, active learning
environment has been demonstrated to be a more effective method of teaching physics
than traditional lectures, and students are expected to retain their enthusiasm
and interest in physics. Additionally, by separating the physics majors from the present
calculus based general physics courses, the department can modify the content of the courses
to suit the needs of the other science disciplines. Equipment is being used
in both the Workshop Physics honors course and the regular general physic course. In the
regular general physics course, the equipment allows the faculty to
explore implementation of a calculus-based version of Realtime physics.